Isomerism as a Theme for Enrichment of Instruction in Organic Chemistry

The functioning of important compounds from drugs to enzymes to retinal pigments is related to their structure, geometry, and stereochemistry. The two-semester organic chemistry laboratory will be revised by focusing on the theme of isomerism, because students frequently have difficulty learning these structural concepts in the abstract and appreciating their importance. Several experiments will be implemented in a problem-solving format that will involve students in learning about optical isomers and chirality, structural and geometric isomers, and tautomers. The instruments needed for these new experiments and to improve existing experiments include an FTIR spectrophotometer and a polarimeter. The grantee will match the NSF award from non-Federal sources.